US-France Cooperative Research: Radio Observations of FlareStars

This award will support collaborative research in radio astronomy between Dr. George Dulk, University of Colorado and Dr. Alain Lecacheux, Observatory of Paris, Meudon, France. The investigators propose to perform a joint analysis of radio observations of two flare stars made using the new wide-band, high resolution French radio spectrometer at Meudon. Rapid releases of energy called flares occur frequently on the Sun and on certain classes of stars, particularly "flare stars". The manner by which the energy is released is largely unknown, and even the location of the stored energy remains controversial. The main objective of the proposed research is to study the temporal and spectral properties of the radio radiation of flares on a small number of active flare stars, to compare them with the properties of solar flares, and to infer the emission mechanisms and the conditions in the flaring volume. The project will benefit from the complementary skills of the US and French groups. Dr. Dulk has considerable experience in astrophysical plasma physics, as well as in the observation, interpretation and theory of solar and stellar radio emissions. The group at the Observatory of Paris has significant expertise in the theory and observation of solar and planetary radio emissions. The proposed project will add valuable new information on the character of stellar fires and may yield new insight into the mechanism of energy release in stellar and solar flames.